Application of Ergonomics to Evaluating and Improving the Design of Hospital Patient Monitoring Systems

9360055 Sabri This research addresses the human factors aspect of hospital patient monitoring systems and seeks the means of improvements through the application of ergonomics to the evaluation of intensive care units (ICU's). During Phase I, the intensive care patient monitoring system will be reviewed and analyzed in terms of human tasks and equipment monitoring functions and with respect to the equipment setup process, calibration and initialization of monitoring. A functional analysis of the overall patient care monitoring system will be performed to identify the needed ergonomic design improvements. These activities will be done in collaboration with hospital doctors and nurses who operate the equipment regularly. Ergonomic problems that result in human errors or excessive response time, whether in operating specific equipment or in management of the hospital patient monitoring systems, will be identified, classified, and prioritized. Overall recommendations regarding design changes and providing tools for human factor reviews and improvements will be made.